Collaborative Research: SHF: Hardware-Algorithm Co-Design of Efficient AI Accelerators for Molecular Biology and Genomics

Understanding how molecules and genes interact is essential for advancing the life sciences, including improving our understanding of cellular processes, biological systems, and functional genomics. Modern biomedical data capture complex relationships among genes and proteins, but analyzing these relationships remains challenging because biological networks often involve indirect and multi-step dependencies. For example, biological functions are underpinned by the spatiotemporal interactions of multiple proteins operating within molecular networks. This project addresses these challenges by developing new artificial intelligence (AI) algorithms and specialized hardware for the scalable and efficient analysis of complex biological networks. The project is expected to enable faster and more accurate modeling of molecular and genomic interactions, leading to new insights into biological systems, molecular function, and genome regulation. By overcoming key scalability barriers in AI models, the project will broaden the practical use of advanced machine learning for large-scale biomedical discovery. All research findings and simulation toolkits will be disseminated to the community through conference and journal publications, as well as professional meetings. Beyond its technical contributions, the research will also play a major role in education by integrating discovery with teaching and training.
This project will develop a transformative computing framework that integrates new AI models, graph theory, and hardware-software co-design to support efficient analysis of complex biological networks with indirect and multi-step dependencies. This research will result in (1) new AI algorithms to capture direct and indirect interactions in biological networks and to understand how different molecules and genes interact, (2) novel theories to exploit parallelism and eliminate computational redundancy in complex biological networks, (3) hardware accelerator designs that can dynamically adapt to diverse computation and communication patterns, and (4) proof-of-concept open-source molecular and genomic datasets, including drug-target interaction networks and chromatin interaction data. The expected contributions include scalable AI models for complex network analysis, improved computational efficiency for large biomedical datasets, and new tools that bridge advances in AI, computer architecture, and the life sciences.